US-UK Cooperative Research: Cycloadditions for HeterocyclicSynthesis

This award will support collaborative research in heterocyclic chemistry between Dr. Albert Padwa, Emory University, and Dr. Christopher Moody, Imperial College of Science, London, England. The objective of the project is the development of a general, broadly applicable method for the synthesis of novel heterocyclic systems. Emphasis will be placed on the use of a 1,3-dipolar cycloaddition chemistry for the construction of a variety of interesting heterocycles. Among the reactions to be studies are cycloaddi- tions of carbonyl ylides, azomthine ylides and thicarbonyl ylides. The project will focus on using the rhodium catalyzed reaction of diazo carbonyl compounds as a method for generating a variety of 1,3-dipoles. The project will benefit from the complementary expertise of the two investigators. The area of proposed research is of paramount importance in the pharmaceutical industry, as well as in the areas of agricultural and photographic chemicals. The joint effort of these two researchers is likely to make a fundamental contribution to the above fields.